Collaborative Research: RUI: ZEUS-3D - Upgrading the Redshift(z) and Early Universe Spectrometer to Trace Accretion from the Cosmic Web

Recent advances in our understanding of how galaxies grow and evolve point to the importance of gas falling onto galaxies from the space around them. However, the details of how this infalling gas interacts with material already in place to produce galaxies like our own Milky Way are far from clear. This project seeks to reveal the key details of this gas infall and how it influences galaxy properties such as the rate of star formation, the abundance of the elements, and the presence of active supermassive black holes in their centers. To make the necessary observations, this project will develop ZEUS-3D, an instrument ideally suited for simultaneously characterizing galaxies while also detecting the gas accreting onto them. The development of ZEUS-3D provides unique research infrastructure for the astronomical community and advances the state of quantum detector technology using advanced manufacturing techniques. As a collaboration between Winona State University and Cornell University, the development provides important training opportunities for future engineers and astronomers, at both undergraduate and graduate levels.

To meet its scientific goals, this project will extend the heritage of the direct-detection Redshift(z) and Early Universe Spectrometers (ZEUS-1/2) by upgrading the 2nd generation instrument into an imaging spectrometer, ZEUS-3D. The upgrade includes adding an image-slicer, a K-mirror, and a new direct-absorbing KID detector array, while maintaining simultaneous access to both the 350 and 450 micron telluric windows (ALMA Bands 10 and 9 respectively). ZEUS-3D on the 12m APEX sub-mm mm-wave telescope will be a unique instrument, the only direct-detection spectrometer operating at submillimeter wavelengths, and the most sensitive system for observing the far-IR fine-structure lines from extended emission in early galaxies. A pilot survey of far-IR fine-structure lines (e.g. [CII] and [NII]) in galaxies and their circum-galactic medium at cosmic noon (z~1-2) will be used to demonstrate ZEUS-3D performance, train early career scientists, and provide initial answers to the question of how accreting gas from the cosmic web fuels galaxy growth and evolution.